"Fourth International Workshop on Supersymmetry, Supergravity and Superstrings; College Park, Maryland; May 29 - June 1, 1996"

9600429 Mohapatra The particle theory group of the University of Maryland will host the Fourth International Conference on Supersymmetry, Supergravity, and Superstrings, SUSY `96, from May 29, 1996 through June 1, 1996. About six sessions covering theoretical developments in the areas of the minimal supersymmetric model and its tests, supersymmetric grand unification and attempts to understand quark and lepton masses, supersymmetric QCD and duality, and neutrino masses and cosmology are being planned. An additional two to three sessions will deal with experimental results from existing searches for supersymmetry, data on top quarks, searches for neutrino masses and dark matter. ***